Kinetics of lattice phase transitions

Vainchtein
DMS-1007908

This project focuses on development and analysis of
physically-motivated models of materials undergoing martensitic
phase transition, a diffusionless deformation of a crystal
lattice from the high-symmetry parent austenite phase to the
low-symmetry martensite phase, which can exist in several
symmetry-related twin variants. Under mechanical or thermal
loading, these materials form finely layered twinning
microstructures. The unique properties of martensites, such as
their ability to accommodate large deformations and the marked
hysteresis they exhibit under cyclic loading, are determined by
the kinetics of phase and twin boundaries. Understanding how
dynamics of the interfaces depends on their orientation,
microstructural configuration, and properties of the crystal
lattice involves challenging open problems in modeling of
martensites. The project seeks to advance the understanding of
these phenomena from the perspective of mesoscopic lattice
models. Building on her prior work, the investigator focuses on
several prototypical discrete models with the goal of capturing
the essential features of interface kinetics and microstructure
evolution and an emphasis on higher-dimensional phenomena and
rate effects. The main ingredients of the models are nonconvex
interactions between nearest neighbors allowing for the existence
of two stable homogeneous states and the long-range interactions.
Among the outcomes of this project are prediction of nucleated
microstructural patterns and derivation of interfacial kinetic
laws that can be used to solve problems involving temporal and
spatial inhomogeneities. The results are compared to
experimental observations and molecular dynamics simulations.

By focusing on the interface kinetics, this project helps
determine how the dissipative properties of martensites and
related active materials depend on the material structure and the
loading conditions. This is important in emerging civil,
aerospace and industrial applications that require significant
passive damping, such as damage and vibration control in
composite structures and attenuation of earthquake- and
wind-induced vibrations in buildings and bridges. Results of
this project may also help design new materials with desired
properties. Mathematical methods developed during the project
can be used to solve similar problems encountered in dislocation
theory, fracture mechanics, DNA modeling, image recognition, and
numerical analysis. The broader impacts of this program are also
achieved through training of graduate and undergraduate students
in an interdisciplinary research program, as well as educational
and high-school outreach activities.